Mobile Media Institute/Micro-Content Media Program

This institution is completing the implementation of a Mobile Media Institute, a project that focuses on curricula and encompasses the creation, production, organization, and distribution of micro-content. Micro-content includes news, video, music, games, and supplemental educational materials specifically designed for personal electronic devices. This three year project is supporting the courses and staff development necessary to build a concentration for students who are learning to author, integrate and distribute forms of digital content for mobile deployment.

The curriculum serves incoming high school and community college students, four-year university transfer students, and incumbent workers in the computer technology field. The implementation process includes developing appropriate curriculum with a hands-on internship lab component, developing partnerships with industry, and providing faculty and staff training in the new format.